Teachers as Leaders: Launching Mathematics Education into the Nineties

The University of Iowa will conduct a thirty-month program to develop a cadre of lead teachers in discrete mathematics, transformational and vector geometry, and the use of technology in teaching mathematics. In all, sixty well prepared secondary mathematics teachers will participate in a series of summer workshop and follow-up activities designed to provide the necessary subject matter content and leadership training and to winnow out the final group of lead teachers. These leaders will return for a two-week workshops on leadership and additional work on implementing the National Council of Teachers of Mathematics Standards. This project builds on a successful Teacher Enhancement program conducted previously by senior staff members. The project includes a strong component on learning issues especially relevant to under- represented groups in mathematics. The University of Iowa, Maharishi International University, and the participants' schools are contributing an amount equal to 25% of the National Science Foundation request.